An Experimental Investigation of the Determinants of Reinforcement Rate Maximization and Matching

IBN-9318419 Heyman A widely shared, basic idea in economics and related disciplines is that choice is best described as rational decision-making in which gains are maximized and losses minimized (an optimizing strategy). However, the results of the actual decisions made by organisms often differ from the calculations of rational decision theory. In many experiments, these deviations appear to be the result of the operation of some other set of rules than those of rational decision theory. One competing theory, based on experimental studies, is a special case of a general psychological principle known as "matching." Experimental results supporting matching seem to contradict both rational choice theory and common sense. However, the empirical and theoretical relationships between matching and rational choice theory have yet to be clearly described, and recent data suggest a possible synthesis. The purpose of this research will be to explore this synthesis. A number of studies indicate that how individuals "calculate" the costs and benefits of their choices is an important factor in determining matching vs. optimizing. When subjects calculate costs and benefits in terms of the current status of each alternative taken separately, they match. When they calculate costs and benefits in terms of the joint contribution of each alternative, treating each source of reward as a component of a larger unit, they optimize. Thus, the question of whether individuals match or optimize can be restated as which "bookkeeping" rule is in effect. Experiments will be carried out during which matching and maximizing predict different patterns of behavior, producing data that will reveal the conditions under which subjects learn to maximize or learn to match. Implicit in this approach is the idea that it should be possible to discover a yet more general behavioral rule, one that predicts which choice strategy is in effect. A practical implication of this research is that it sho uld show how to frame choice situations so that individuals will choose optimally. This question is especially relevant to issues involving self-control, for example, overeating and addiction.